Chowan College/NSF Young Scholars Project

Chowan College will initiate a three-week, residential, multidisciplinary Young Scholars project offering science enrichment activities for 20 precollege students entering grade 10. In this program participants are exposed to a series of intense hands-on laboratory activities in biology, chemistry, physics and computer usage. Students attend a lecture/laboratory for approximately three days in which they learn skills designed to be used in carrying out research projects. Three days are spent visiting industry and surrounding sights of ecological interest. The remainder of the time is spent on their research project. Summaries are written in journal style and the findings presented at a mock symposium.